Minority Graduate Assistantship in Chemistry - Todd J. Martinez

Todd J. Martinez has been awarded a Minority Graduate Assistantship in Chemistry. The Minority Graduate Assistantships in Chemistry are viewed as an infrastructural investment designed to broaden the participation, knowledge, and experience of students who are members of minority groups underrepresented in Chemistry, and attract them into meaningful careers in chemical research and teaching. %%% Mr. Martinez has a B.S. degree from Calvin College and is currently in the Ph.D. program at UCLA in the area of Theoretical Chemistry. His research adviser, Prof. Emily Carter, writes that he has worked out the equations to do the configuration interaction problem using Friesner's pseudospectral method. In his proposed plan of research he describes the Monte Carlo calculations of the electronic structure of iron dimer.